CCD Photometry of RR Lyrae Stars

RR Lyrae variables are a group of pulsating stars that occur in old regions of the Galaxy, such as in globular clusters and the general galactic halo. Because these variable stars are all known to have nearly the same luminosity, they were first used as "standard candles" by Harlow Shapley earlier this century to determine the distance from the Sun to the Galaxy's center. Moreover, since many of these stars are thought to have been formed during the early stages of the Galaxy's collapse soon after the Big Bang, their age is important in determining the age of the Universe. Recent work has shown that the luminosities of RR Lyrae stars have a residual dependence after all on their metal content and age. Additionally, there is an important standing controversy over whether globular clusters were all formed soon after the Big Bang or over an extended period of time. To resolve these issues requires a careful determination of the incidence of these stars among various globular clusters, the distribution of their periods, and the dependence of their luminosiites on their surface temperatures. Past efforts to improve our knowledge of the properties of RR Lyrae stars have been hampered by their faintness and their crowding together in dense star conglomerates in the sky. The Principle Investigator proposes to monitor the luminosity variations of a large number of RR Lyrae stars in metal-poor and metal-rich globular clusters to separate out the residual dependences of these physical characteristics. The Investigator will use a modern Charge Coupled Device on a small telescope to perform this work. Such devices are sensitive even to small variations in light output. Additionally, because many star images may be focussed independently on the detector surface, one may use non-variable stars on the same image to subtract out changes in sensitivity caused by instabilities in the instrument and the Earth's atmosphere.